Optimization-based Implicit Deep Learning, Theory and Applications

The past decade has seen remarkable success in deep learning. However, a significant challenge in today's era is to ensure interpretability and reliability in these models. In various applications, deep neural networks (DNNs) need to provide guarantees on their outputs, such as maintaining a self-driving car within its lane. On the other hand, many of these tasks can be formulated as optimization problems, where optimization algorithms offer interpretable and reliable solutions. Unfortunately, these models do not leverage data and thus fall short of state-of-the-art deep learning models. This research will address enhancing interpretability and reliability in deep learning methods and improve public safety when such learning methods are applied. In addition, the project will provide valuable educational opportunities for students involved. Participants will gain knowledge in inverse problems, optimization, and machine learning, which are transferable skills applicable in academia, government, and industry.

The project aims to develop a framework that combines the interpretability and reliability of optimization algorithms with the design and training of DNNs. The primary focus is on implicit networks, a type of DNNs that determines their outputs implicitly through fixed point or optimality conditions, rather than a fixed number of computations like traditional DNNs with a set number of layers. This integration of optimization algorithms into implicit networks is referred to as implicit learning-to-optimize (L2O) networks. Implicit L2O networks have the potential to overcome the limitations of traditional DNNs, including their lack of reliability and interpretability. However, training and designing implicit L2O models present additional challenges that hinder their widespread adoption. To address these challenges, the research aims to develop a universal implicit L2O framework.